RPG: Molecular Systematic Studies of the n=9 Species in the Genus Passiflora (Passifloraceae)

This project proposes to study the taxonomic relationships among the species of a group of passion flowers. Although the genus Passiflora comprises about 450 New World species, this study will focus on 70 species in the group with a common haploid chromosome number of n = 9. This group contains the majority of the showy- flowered and cultivated species which have edible fruit. The method proposed for this taxonomic study is the comparative analysis of the chlorpolast DNA using restriction site enzymes. Chloroplast DNA is usually inherited only through the female plant, but chloroplasts have been reported to be present in the pollen tubes of one species, so artificial hybrids will be analysed with their known female and pollen parents to test the inheritance pattern of the chloroplast DNA in Passiflora. Nuclear ribosomal DNA will also be used to test field collected species for possible hybrid origin. The data obtained in this study should be of use, not only to shed light on the relationships of this group of passion flowers, but also to elucidate the relationships among a group of Neotropical butterflies in the genus Heliconius whose larvae feed exclusively on the leaves of Passiflora species.